MRI: Acquisition of a Beowulf cluster for use in research and research training

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Oberlin College will acquire a Beowulf cluster. This equipment will enhance research in a number of areas including a) electronic structure calculations of preferential salvation around peptides; b) quantum chemical ab initio calculations of the atmospheric oxidation mechanisms of hydrocarbons; c) development of algorithms for multiple whole-genome alignments; d) studies of pulsar scintillation; and e) the development of new models of propagation of electromagnetic waves through turbulent ionized plasmas.

A cluster of fast, modern computer workstations is vital to serving the computing needs of active research departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-the-art graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing. These studies will have a significant impact in a wide number of areas, including biochemistry, space physics and environmental chemistry.